SBIR Phase II: Making Makers- Developing Multiple Pathways to Invention through a Low Cost Maker Device

This Small Business Innovation Research Phase II project will continually refine and move towards production of this project's Creative Maker Tool, an augmented reality experience where the act of playing is inherently inventing. The system uses modern technology to avoid digital screens. Throughout this experience, learners tap into their natural proclivities to make and shape ideas in the non-digital world, and develop the ability to fluently construct new ideas in a technical medium. The commercialization of this project will address two, nationally important issues. First, by scaffolding young learners through progressively bringing their ideas into reality, this project will foster creative confidence: the natural ability to come up with ideas and the courage to act on them. Next, there is a gender gap in innovation and entrepreneurship in the United States. Women patent at 40% the rate of men, only 9% of information technology related patents have one or more female inventors, and only 8% of the beneficiaries of incubators meant to commercialize innovations were women. This project will address gender equity issues in the maker community (currently 80% male) and by widening pathways to engage in making.

The system is composed of a projection system that allows real-time programmable interactions between everyday and virtual objects without a computer screen. Throughout this research, we will create and refine STEM (Science Technology Engineering and Mathematics) Apps, which are built-in augmented activities where users create small inventions with everyday objects to code interactions and affect program flow or gameplay, develop Augmented Tutorials, bridge seamlessly to existing STEM tools through real-time interfacing, as well as manufacture and prepare the system.